EAGER: Promoting LGBTQ Equality in Engineering through Virtual Communities of Practice

There is compelling evidence that diversity among students and faculty is crucially important to the intellectual and social development of all students. This project aligns with the National Science Foundation's goal to promote a more diverse engineering workforce by promoting LGBTQ (lesbian, gay, bisexual, transgender and queer) equality in engineering -- a group that has been underserved by other efforts to increase diversity in the profession.

While there has been a gradual positive change in campus climate for LGBTQ individuals, engineering departments have proven more impervious to inclusive practices than other disciplines. By linking diversity research with a faculty development initiative, this project explores the aspects of engineering culture that serve as impediments to LGBTQ equality and uses this knowledge to design training to promote LGBTQ equality in engineering departments. Through face-to-face and online training coupled with an online community of practice, this project will build a network of LGBTQ-affirming faculty who are aware of strategies to foster an inclusive environment and are empowered to advance LGBTQ equality in their departments.